Gravitational Wave Astronomy: A New Window on the Universe

Dr. Ilya Mandel is awarded an NSF Astronomy and Astrophysics Postdoctoral Fellowship to carry out a program of research and education at Northwestern University and the Massachusetts Institute of Technology. The PI will develop improved estimates for compact binary coalescence event rates for the Laser Interferometer Gravitational-Wave Observatory (LIGO); conversely, LIGO rates or upper limits will be used to constrain the space of astrophysical parameters describing binary evolution. Dr. Mandel will improve Markov Chain Monte Carlo techniques in order to estimate binary parameters accurately from gravitational-wave observations and to probe systematically the global structure of the parameter space, including the location of possible degeneracies. The PI will explore the use of LIGO intermediate-mass-ratio inspirals (and, eventually, extreme-mass-ratio inspirals) to probe strong-field relativity, study massive compact bodies, and test general relativity. With this goal in mind, the PI will develop improved intermediate-mass-ratio inspiral waveforms and the methodology for intermediate-mass-ratio inspiral detection and parameter estimation. The PI will set up the framework to study the astrophysics of galactic nuclei through intermediate- and extreme-mass-ratio inspiral observations, particularly those with electromagnetic counterparts, and will develop rapid online data analysis tools for this purpose.

Dr. Mandel will also develop a multimedia, web-based tutorial elucidating gravitational-wave detection, data analysis, and the ensuing astrophysical discovery. In addition to presenting the subject of gravitational-wave astronomy, this tutorial will strive to explain the scientific method to the general public and engage the participants in the excitement of scientific discovery. This tutorial will be advertised to local high-school students and will form the backbone of multimedia presentations for the public to be shown at the Adler Planetarium in Chicago and the Boston Museum of Science.